High Performance Parallel/Distributed Computing

This award supports infrastructure for research in high performance parallel/distributed computing. The award supports the purchase of a high performance distributed memory computer. The award also supports a programmer to develop, maintain, and distribute software developed on this computer. The research supported by this infrastructure is of two forms: compute intensive research and systems applications research. The compute intensive research includes computer vision, computer graphics, simulations, 3-D animation, and computational chemistry. The systems applications research includes developing fast operating system kernal service routines, programming models of parallel computation activities, software engineering environments, and fundamental research on parallel algorithms for distributed memory computers.